New Approach to Experimental Studies of Dynamics and Reactions in Condensed Aqueous Phase at Temperatures Near Ambient

Abstract
CHE-0416091
Sadtchenko/George Washington

Professor Sadtchenko and his coworkers in the Department of Chemistry at the George Washington University are examining the thermal and UV photoinduced chemistry of small oxygenates trapped in dynamic water ice thin films. Using a rapid thermal desorption method coupled with time of flight mass spectrometry, the chemistry of this dynamic molecular interfacial system is being examined. Fundamental information from these studies is relevant to many questions of heterogeneous chemistry in the atmosphere and the environment.

With the support of the Analytical and Surface Chemistry Program, Professor Sadtchenko and his coworkers at George Washington University are studying the thermal and photochemistry of small organic molecules trapped in water ice thin films. A novel rapid thermal desorption method developed by Professor Sadtchenko is being applied to studies of the reaction kinetics of these systems, which are relevant to atmospheric and environmental chemistry.